A Laboratory Course in Mathematics for Liberal Arts Majors

Make mathematics courses more relevant| Use technology effectively| Have students learn experientially and collaboratively| Throughout the nation these have been clear and urgent calls. A course for liberal arts majors (Math 1010) is being developed to address these issues. This four- semester-hour course includes a two-hour laboratory each week in which students learn to solve problems. They generate data and have group discussions comparing alternative strategies for solving a problem. Then they give both written and oral presentations of their solutions. Computer are used for graphing data, for doing statistics, for solving linear programming and financial problems, and then for integrating all of these into written reports. Students leave this course with an appreciation of how mathematics and computers are used as tools in modeling and problem solving. The goal is that eventually 1,000 Appalachian students will take this course per year, and that this course will serve as a model for other schools.